Conference: Support for SRBR Meeting, Jacksonville, Florida, May 22-25, 2002

The Society for Research on Biological Rhythms is now the largest society in the world
for those interested in biological rhythms, and this award supports their biannual
meeting. Biological rhythms are an important feature of life on this planet, and so the
topic has major importance, and there have been rapid recent advances in
understanding underlying mechanisms of rhythmic biological activity.
The conference is highly interdisciplinary in the approaches discussed, including
molecular biology, physiology and behavior, computational neuroscience and
neuroendocrinology, and in topics spanning subsecond oscillations in motor systems,
intertidal rhythms in invertebrates, reproductive cycles, human sleep and shift-work
schedules. The format is an excellent combination of lectures, workshops, and poster
sessions, emphasizing interactions between workers from different fields, and women
are well represented, along with the international community. The biannual timing allows
a good perspective, and this year will cover some of the most exciting current issues,
such as the recent discovery of a link between the circadian clock gene Per (from the
fruitfly) and a genetically controlled sleep pattern in humans.
The potential impact of this conference is high in the fields of neuroendocrinology and
behavioral neuroscience, because of the focused discussions shaping future work, the
potential to develop new cross-disciplinary collaborations, and the likely interactions and
introductions essential to career development of young investigators. Funding from NSF
will be important to help students, postdocs, and young researchers without access to
other funding to attend the conference.